NCSA Institute on Scientific Visualization

This award supports a two week Summer Training Institute in scientific visualization at the National Center for Supercomputing Applications (NCSA). NCSA is an NSF supported supercomputing center providing access time, education, training and consulting services to scientific researchers. The summer workshop will have two basic components: an awareness component, and applications component. Students will be provided with a historic profile of the evolution of computer graphics into scientific visualization. Perspective will be given to systems and methodology in this evolution. After learning the nature of the field, participants will look at the current sate of the art by taking an abstract approach to current visualization methodology. This methodology will be placed in the context of actual visualization tools and highlighted by case studies and practical examples. The applications component will focus on visualization tools that are available to the researcher. This will be a "hands-on" approach experienced in various NCSA laboratories. Participants will work with some of the applications available through NCSA, as well as with some resources NCSA does not have, through vendor participation. Courses will also include a survey of graphics system (hardware and software), introduction to 3D graphics and the use of color in visualization. Discipline specific experiences will include chemistry fluid dynamics, and engineering. Media output options (videotape/film) will be available. An evaluation of the institute will be done following completion of the two week session.